Low Probability of Detection Wireless Communications

The objective of this project is to establish the fundamental underpinnings
of low probability of detection (LPD) communication systems operating over
classical or quantum mechanical channels. This provides a transformative
impact in two ways: (1) establishing a new approach that transforms the
largely dormant (and socially compelling) area of LPD communications;
(2) introducing and developing the foundations of the LPD optical channel,
which requires quantum mechanical considerations.

Intellectual merit:

The intellectual merit is based on a fundamental approach to the LPD
communications problem that employs a broad array of tools to establish
a new branch in the large field of wireless communications security.
This project will also demonstrate the intellectual richness of the
security problem that arises when quantum mechanical considerations
are considered in optical communications. Tools from classical
communications and networks, in particular information theory, mix
with tools from quantum information systems.

Broader impacts:

The broader impacts are focused on impacting society and education.
The hiding of the existence of transmissions while still communicating
reliably has clear application in both military and civilian societal
contexts. The results of this project will allow communicating parties
and those whom attempt to detect them to understand the fundamental
limits on such communication and techniques to achieve those limits.
Finally, the project includes an integrated program of educational
engagement that utilizes the extensive resources of both UMass-Amherst
and BBN, with the latter contributing both theoretical expertise
and experimental facilities for quantum information processing
that will provide a unique opportunity for UMass students.